Mathematical Sciences: Crack Propagation in Linear and Nonlinear Viscoelastic Material

The principal investigators will continue their studies of various mathematical models of propagating cracks in linear and nonlinear elastic and viscoelastic materials. For the models of linear materials interest will focus upon dynamic crack growth in viscoelastic materials and interfacial fractures in both elastic and viscoelastic materials. For the models of nonlinear materials interest will focus upon the development and implementation of finite element methods for the numerical simulation of growing cracks in viscoelastic materials. Crack propagation phenomena appear in a variety of technologically important areas. For example, due to the increased use of polymers and polymer-based composites there is a genuine need for understanding the nature of fracture processes in viscoelastic materials. In this project the principal investigators will apply analytical and numerical methods to study the propagation of cracks in mathematical models of elastic and viscoelastic materials.